Inverse Models and Orthogonal Decompositions in Geophysical Flow

ATM-9312760 Haupt, Sue Ellen University of Colorado, Boulder Title: Inverse Models and Orthogonal Decompositions in Geophysical Flow The purpose of this project is to simultaneously apply proper orthogonal decomposition and linear inverse methods to produce simple, easy-to-run, fast models which reproduce the statistics of more complicated models. First, a linear inverse model based on the empirical orthogonal functions (EOFs) of a series of runs of the Shallow Water Equations (SWE) will be developed. The SWE were chosen for ease of comparison with previous and ongoing studies. This simple inverse model will include the EOFs, their tendencies, and statistical noise. EOFs will then be used to construct an inverse model of the Community Climate Model of NCAR. Such an inverse model has not yet been applied to climate models to our knowledge. Thus a simple (fast, easy-to-run) climate model with statistics identical to the full climate model on which it was based will be constructed. Such a model will be useful for instances where the statistics need be to reproduced, but for which the exact time development is not essential. Various sensitivity analyses will be performed to determine the best methods to construct these models. This line of research will lead to a new method to decrease the number of degrees of freedom necessary to obtain adequate resolution in some geophysical models. In addition, it will give new insight into the interactions of the empirical modes of motion. This work is preliminary to developing s fully nonlinear climate model based on orthogonal projections. It is important because it would facilitate the testing of climate hypotheses which require credible but simple (computationally cheap) climate models. This research is funded under the NSF USGCRP CMAP program.